Spectropolarimetry of AGN

This award will permit the completion of an important new astronomical instrument, a spectropolarimeter for the palomar five meter telescope. This instrument will be used to study the nuclei of active galaxies by a group that has led the way in the study of apparant superluminal motion in these objects.